Analytical and Geometrical Aspects of Non Linear Partial Differential Equations

March 11, 2002.
PI: Luis Caffarelli [[email]], University of Texas, Austin
DMS-0140338

Abstract:

Our research focus in a series of phenomena that bring together
different areas of non linear PDE. For instance, a flame front propagating in a layered medium brings together the interaction of the fast phase transition at the edge of the flame, with the linking of large scales (front speeds) and small scales (possibly random , thin layering).
Recent models of front formation, bring together the interaction of
optimal allocation,that provides the " variational framework" for front
formation (the Monge Ampere equation ) with the issue of how vorticity is
transported within, and affects the front. Finally, problems in financial engineering, bring together fully non linear equations ( for instance as "extremals" or intervals of
"trust" when only rough bounds on volatility and correlations are
available) with issues of phase transition , when trading strategy
changes discontinuously at certain values of the parameters,or there are
constraints on the range of trading, and homogeneisation, when the
underlying space changes randomly.

We plan to study several models from different sciences that bring
together interactions of complementary non linear phenomena.
A good example would be flame propagation in a thinly layered
material: Observed at short range, the flame front will "wiggle", moving
faster in some of the layers, depending on their composition.
From far away, the flame will appear as a homogeneous front.
Its speed , though, will depend in a very subtle way from both the nature
of the ignition process at the edge of the flame ( free boundary
problem) and the properties of the very fine, ( possibly randomly
organized, as it usually occurs in nature) thin layering.
Another example has to do with the formation of weather fronts: according
to some models, globally the front organizes itself trying to " spread its
energy" in an optimal way, and within, vorticity ( the "rotational
component" of wind) is transported in an interactive way with the front
organization. A third example comes from financial engineering when seeking optimal ( or
safest) trading strategies, but , as in most cases, only a rough knowledge
is available of the way different ways in which different components of
the portfolio, or parameters ( interest rates, exchange rates, etc
) interact.This rough or incomplete knowledge, gives rise to non linear
strategies, that couple with constraints in the trading range,
discontinuous trading strategies, etc.